Animation and Video Techniques for Visualization

The realism of computer graphics images increases with the development of new algorithms which model reality. Such algorithms are now possible with the increasing power and affordability of computers. Graphics is different from photography as it can create images which do not exist or cannot be photographed. For example, images of the rings of Saturn can be created from the data sent back from space probes and the interaction of atomic particles can be displayed from data developed on supercomputers. This project will continue work which animates the process of a system, the algorithm of a solution. Educational computer videos will be developed showing the steps in an algorithm or the progress of actions within a system. The videos will use state-of-the-art graphics tools such as photorealistic rendering and scientific visualization. The project will also develop software tools to aid the process, and manuals to make the techniques accessible to others. Powerful color workstations which can support the use of these tools will be acquired as part of this project.